High Volume Production of Ultrafine Particles

It is proposed the "continuous particle ablation process" with the following goals: (1) Ultrafine particles to be produced with exceptional purity (fiber optics grade); (2) Both single component and stoichiometrically correct compound particles, including coated or capped particles, can be produced; (3) Particle shape should be spherical and agglomerates are not acceptable; (4) The process should be amenable (both technically and economically) to scale up to kg/h production rates. Essentially, micrometer or supermicrometer aerosol particles, produced upstream by conventional methods of aerosol technology are continuously flow in a carrier gas in a supersonic jet through the focus of a pulsed laser beam, where they are continuously ablated/vaporized to vapor and seed clusters. These seed clusters can grow subsequently by condensation to produce nearly monodisperse nanometer clusters. Downstream, the clusters can be processed and modified chemically, if desired, and used in any specific application. The ablation and growth processes in the supersonic jet will be modeled numerically to obtain a fundamental understanding of this complex process and as an aid in subsequent scale up of the process. The proposed process will provide a significant advancement in production of ultrafine, ultrapure particles at high rates.